Science Achievement and Health Behavior: High School Curriculum, Social Context, and Opportunity to Learn

A three-year research project is proposed with the following goals:
1. To fully describe the science and mathematics curricular exposure of high school students and
differences resulting from curricular variations, social context and opportunities to learn, and
students background.
2. To analyze how curricular exposure and social structure influence students persistence through
the science and mathematics pipeline.
3. To analyze how curricular exposure and academic progress through the science pipeline affect
students choice to major in science-related fields, including teaching.
4. To analyze how science curricular exposure shapes students health behavior and health-related
science literacy.
Three major areas that influence students progress through the science and mathematics
pipeline and their health choices and literacy even if they leave the pipeline are identified and
analyzed: (1) curriculum content, performance expectations and perspectives (2) formal,
structured opportunities to learn and (3) the informal social contexts of students learning
environments.
Quantitative methods are employed. This study takes advantage of a unique and timely
opportunity to analyze nationally representative, longitudinal data from the 1990s, the National
Longitudinal Study of Adolescent Health (Add Health) and its transcript supplement. A third
wave of Add Health is currently being gathered, and students high school transcripts and
supporting school documents (course catalogues, syllabi, textbook lists) are being collected and
coded. For this study, course curriculum (content, performance expectations, and perspectives)
will also be coded and analyzed along with the transcript data and longitudinal survey data from
approximately 19,000 respondents who were in grades 7 through 12 in the1994-1995 school year.
This data set contains extensive measures of many sources of influence from the contexts of
students lives that can be linked to adolescents health behavior, academic performance, and
science and teaching aspirations.
This study is set within Quadrant III of the ROLE program: irResearch on SMET learning in
formal and informal educational settings,ll and has major implications and links to Quadrants II
and IV. The study directly targets the question of how recent mathematics and science
educational reforms in approaches and curriculum materials affect students academic progress
and learning. It explicitly distinguishes between formal and informal processes to assess the
effects and interactions of each. The study addresses the concentration of Quadrant II since the
research questions are framed to recognize how the complex, multilevel aspects of students
backgrounds and lives interact with the structure and social context of schools to affect learning.
The concentrations of Quadrant IV are also addressed by the multilevel approach to analysis of
longitudinal, nationally representative data. The data sets depth allows for analysis of how
reforms in curricular content (including textbook adoptions) and structure are related to students
progress within the context of schools and curriculum-based subsets of students (such as tracks).
Consistent with common themes across ROLE concentration areas, this study will model these
processes and analyze large-scale effects of curricular and social structuring inherent in
mathematics and science reform efforts. Finally, it assesses how science education is related to
the everyday lives of the U.S.s diverse population by examining how exposure to science in
high school is related to health choices and behaviors.